Support for the RIDGE Office

This Proposal is to support the RIDGE coordinating office at Oregon State University. The RIDGE office is the focal point for the communications, planning and organization, and the day-to-day leadership that are essential to a successful coordinated, inter-disciplinary research program. The most time consuming responsibility is program planning, coordination, and logistical support, which includes organizing and scheduling meetings and workshops, developing agendas and programs, editing, publishing, and distributing minutes and reports.